A Non-linear Input/output Analysis of the Electrojet Indices

It is proposed to analyze the non-linear response of the Earth's magnetospheric system as driven by the solar wind. The newly developed technique of non-linear input/output analysis will determine the non-linear behavior of the magnetosphere. Previous linear analyses have been incapable of exploring the non-linear dynamics; previous non-linear analyses have treated the magnetosphere as an autonomous system, which clearly neglects the major effects of the solar wind. Under the assumption that the electrojet indices are valid diagnostics of the state and dynamics of the magnetosphere, the time series of the electrojet indices will be analyzed as a function of the solar wind parameters for the years 1978 and 1979. The identification of low dimensional non- linear dynamics in the magnetospheric system will lead to much better short term predictions of the solar wind and magnetosphere. conversely, a definite demonstration of the absence of such deterministic behavior will help to guide future efforts aimed at modelling the magnetosphere.